Random Fields and Stochastic Partial Differential Equations

One of the primary concerns of this proposal is
to develop, systematically, geometric methods for analysis
of random fields and stochastic differential equations. Special emphasis is
placed on Gaussian, stable, and Levy random fields such as the
Brownian sheet, additive Levy processes, and solutions of
stochastic partial differential equations driven by Gaussian or
Levy noises. These are random fields that arise naturally in
many areas of mathematics, applied mathematics, mathematical
oceanography, turbulence, stochastic hydrology, geostatistics,
spatial statistics, and mathematical physics.

The proposed research intends to gather and develop probabilistic,
analytic, algebraic, and geometric tools that lead to a deeper
understanding of the geometry of random fields and stochastic
partial differential equations. The Proposers believe that these
tools will be novel enough to solve a number of open
problems on random fields. The Proposers also believe that
the program developed herein will help promote the future
applicability of these and related mathematical methods in the
aforementioned areas.